Conference: CPS: NSF Student Travel Grant for 2024 Cyber-Physical Systems and Internet-of-Things Week (CPS-IoT Week)

This project will provide funding for students from U.S. institutions of higher learning to attend the 2024 Cyber-Physical Systems and Internet-of-Things Week (CPS-IoT Week 2024) in Hong Kong during May 13-16. 2024. This is the first in-person international CPS IoT week since the pandemic in 2020. CPS-IoT Week (previously known as CPSWeek) is the premier conference for Cyber-Physical Systems research, and is comprised of five flagship conferences in CPS, namely ICCPS (International Conference on Cyber-Physical Systems), RTAS (Real-Time and Embedded Technology and Applications Symposium), IPSN (Information Processing in Sensor Networks), HSCC (Hybrid Systems: Computation and Control) and IoTDI (Internet of Things Design and Implementation). In addition to these 5 conferences, there are multiple workshops and demonstrations that permit papers to be submitted and presented by graduate students and postdoctoral researchers.

Cyber-physical systems (CPS) are engineered systems that are built from, and depend upon, the seamless integration of computation and physical components. Advances in CPS will enable capability, adaptability, scalability, resiliency, safety, security, and usability that will expand the horizons of these critical systems. CPS technologies are transforming the way people interact with engineered systems, just as the Internet has transformed the way people interact with information. Travel support to this conference enables participation in the conference by US based students who would not otherwise be able to attend, and provides opportunity to network with top researchers in the field.